Finite Element Methods in Science and Engineering

The interdisciplinary workshop "Finite Element Methods in
Science and Engineering" will take place at the University
of Texas at El Paso on December 11 - 14, 2006. The goal
of the meeting is to facilitate the communication among
mathematicians, engineers, and software developers working
in various areas related to the Finite Element Method (FEM).
The rapid development of the FEM is tightly connected with
the development of the scientific computing hardware. In the
last 15--20 years we have witnessed a substantial development
of computers. Nowadays a desktop PC for about $1,000 has
more computing power than the best computer that was available
15--20 years ago. According to realistic estimates, this
rapid development will continue at least for the next 10--15
years. Thus it will be possible to perform extremely large
computations compared to what is possible today.
The input data for scientific computations always contain
smaller or larger uncertainties that lead to uncertainties
in the predictions based upon the computed results. Therefore,
one of the important open questions is how to formulate this
uncertainty and how to control it. A large potential to be
exploited lies in interval computation: A significant
part of the audience will consist of interval computation
experts. It is another goal of the meeting to disseminate
the highly-accurate and efficient modern methods, such as
the spectral and hp-FEM, into the engineering community. Vice
versa, the mathematicians will benefit from getting a realistic
idea about the interests and needs of the engineering audience.

The Finite Element Method (FEM) is the most frequently used
numerical method for the computer simulation of a large
variety of processes in science and engineering, such as the
weather, heat transfer, elasticity/plasticity, the motion of
fluids, chemical reactions, electromagnetics, and others.
The efficient and accurate simulation of these processes finds
direct applications in areas of national interest, such as

(a) reducing the energy consumption of major industrial
technologies,
(b) weather, hurricane, and flood prediction,
(c) prediction of the ozone layer development and global warming
effects,
(d) improving the security of spacecrafts located on the orbit
of the Earth and their crews,
(e) improvement of defense systems such as remote location of
airplanes and missiles, and many others.

The FEM also is used to improve the understanding of natural
phenomena that cannot be measured (such as, for example, the
dynamics of ocean streams, fluid-electromagnetic processes
on the surface of the Sun, interaction of the Solar Wind
with the geomagnetic field of the Earth, etc. The audience will
comprise 8 invited keynote speakers who are renowned authorities
in the field, approximately 30 contributing speakers and 10
students. The proceedings of the workshop will be published in
a quality scientific journal (Journal of Computational and Applied
Mathematics). The University of Texas at El Paso (UTEP), with
approximately 19,000 students of whom 80--85 % are of Hispanic
origin, is one of the largest Hispanic-serving institutions in
the nation. In addition to its scientific goals, the proposed
workshop is expected to attract the attention of the scienrific
community to UTEP and its effort to develop a new Ph.D. program
in Computational Science.